Design and Fabrication of the 21 Tesla (T) Magnet

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This award from the Division of Chemistry supports the development and acquisition of a 21 tesla superconducting magnet that will be the basis of an ultrahigh-resolution Fourier transform ion cyclotron resonance mass spectrometer (FTICR-MS). Dr. Alan Marshall and his team at the National High Magnetic Field Laboratory (NHMFL) will work with a selected vendor to develop and fabricate a superconducting magnet that can be interfaced with advanced ICR technology to yield mass spectrometry systems with unprecedented capabilities in mass resolution, mass range, and sample complexity.

In addition to advancing mass spectrometry science in general, this project will also have direct and groundbreaking implications in the fields of petroleomics, top-down proteomics, and in the characterization of the structure and behavior of macromolecular complexes.